Pulsed Magnetic Resonance at Low Temperatures

The goal is to examine dynamics and phase transitions for adsorbates at high densities and low temperatures, and under restricted dimensionality, using pulsed NMR as a probe. The proposed research includes: studies of structure, motions, conversion and phase-transitions in solid H2, HD and D2 at high densities; high-pressure studies of Kr and Xe; very detailed studies of adsorbed films of H2, HD, D2, Kr and Xe on MgO and BN substrates and in porous media; measurements on the relaxation of dilute light impurities and on the structural transitions they may induce.